Acquisition of Portable Two-Axis Servo Hydraulic Testing System for Materials Research and Education

9302467 Einstein Numerous research projects and academic courses in several departments at MIT require the capability to apply loads in two directions. The proposed portable two-axis hydraulic testing system will be used for this purpose. The system fabricated by Instron, consists of two modular hydraulic actuators (with 5 gpm servo-valves) and capacities of 11 and 22 kips respectively, each with a 6" stroke. The actuators will be powered by a 6 gpm hydraulic pump mounted on casters. The control console will be cart mounted and provide uni-axial and biaxial capabilities. Each actuator can be configured for force control, stroke control or external transducer control. The digital function generator does accommodate for a phase shift between the two actuator motions. The equipment will be part of the MIT REMERGENCE (Resource Extraction, Materials and Energy, Reservoir, Geotechnical, ENvironmental and Construction Engineering) Laboratory, a joint laboratory of the Departments of Civil Engineering; Materials Science and Engineering; Mechanical Engineering; Ocean Engineering and Earth, Atmospheric and Planetary Sciences. Faculty, graduate and undergraduate students use this laboratory. Typical research projects for which the equipment will be used are: Experimental Investigation of Microcracking Processes in Cementitious Composites under Biaxial Compression (PI: C. Leung) Fracture Coaalescence Research on Model Rock and Real Rock (PI: H. Einstein) Cyclic Fatigue of Soils (PI: J.T. Germaine) The close tie-in between research and education at MIT implies that graduate and undergraduate students will work with his equipment be it in research projects or courses with experimental requirements.